An Interdisciplinary Approach to Data Management in Undergraduate Instruction

This project seeks to provide an interdisciplinary approach for undergraduate study of modern data management techniques and an interdisciplinary team approach to environmental problem solving. This program builds on the Biology Department experience with microcomputer- based laboratory work stations and the Civil Engineering Department Design Center concept. The work stations interface digital laboratory equipment, hand-held data loggers and weather telemetry instruments with data acquisition hardware providing rapid data aquisition, computer analysis and evaluation. The program focuses on collaborative work in sanitary and toxic waste management, which requires training in modern data management techniques and interdisciplinary approaches to problem solving. Students learn data management and instrumentation techniques through course work, laboratory exercises and an interdisciplinary design project. Students benefit through learning and practicing modern data management techniques appropriate to their disciplines and have the experience of working together as a team to find solutions to the environmental problems. This interdisciplinary approach models real life situations, increases student confidence in problem solving ability, and opens new career opportunities for students in both departments. The grantee provides funds for this project that are an equal match for the NSF award.